Purchase of a 400 MHz NMR Console

This award from the Chemistry Research Instrumentation Program will assist the Department of Chemistry at Northwestern University in the purchase of an upgrade for a 400 MHz, multinuclear, nuclear magnetic resonance (NMR) spectrometer. This upgrade will enhance greatly research in a number of areas including the following: 1) Early transition and f-element based homogeneous catalysis, 2) Silicon and tin chemistry, 3) High field NMR in cluster chemistry and solid electrolytes, 4) Transition metal complexes with redox-active hemilabile ligands, 5) Chemistry of soluble metal selenides and tellurides, 6) Bioinorganic chemistry, 7) group IV reagents in organic synthesis. Tin-119 NMR studies. 8) Mechanism studies of enzymes and enzyme inactivators, 9) Donor-spacer-acceptor complexes and functionalized quantum-confined semiconducting particles. %%% A nuclear magnetic resonance (NMR) spectrometer is used to obtain information about molecular structure (what types of carbon and/or hydrogen atoms and/or hetero-atoms are present, what are the relative number of each type of atoms and how are they connected to one another in the molecule) and molecular dynamics (how rapidly are the various parts of the molecule moving). This instrument is essential for any meaningful, modern synthetic chemistry research program.